RUI: Sorption and Biostabilization of Airborne Volatile Organic Compounds

This is a project to study the ability of biologically active filters to absorb, adsorb and stabilize volatile organic compounds that are emitted from industrial and municipal waste processing systems. Experimentation in this project initially involves passage of synthetic gas streams containing trichloroethylene through a biologically active medium that initially will be enriched for favoring methanotrophic microbial organisms. Other organic compounds to be included include 1,2 dichloroethylene, benzene and toluene. This proposal was submitted in accord with the NSF Program Announcement 89-60, Research in Undergraduate Institutions. Previous efforts to remove volatile organic compounds from process streams to reduce their emission to the air have demonstrated the efficacy of physical/chemical systems. The physical/biological process this research addresses has promise of removing the potential air pollutants from gases prior to their being exhausted to the atmosphere at significantly.